Oklahoma PDE Workshop; October 2010

This award provides support for participants in two meetings of the annual Oklahoma PDE Workshop during the 2009-2010 and 2010-2011 academic years:
(1) a workshop on recent progress in partial differential equations of fluid mechanics, with emphasis on modeling of geophysical fluids, to be held at Oklahoma State University on October 10-11, 2009;
(2) a workshop on analysis of partial differential equations arising in geometric applications, to be held at the University of Oklahoma on October 9-10, 2010.

Each meeting features invited lectures by two leading researchers on topics of current research interest in applied partial differential equations. The events bring together scholars currently making important contributions, early career mathematicians, and students working in the field. The conference encourages and financially supports participation by students, recent Ph.D. recipients, and members of groups underrepresented in mathematics.

Conference web site: http://www.math.okstate.edu/ok_pde_workshop